CPS: Medium: A Logical Framework for Self-Optimizing Networked Cyber-Physical Systems

A Logical Framework for Self-Optimizing Networked Cyber-Physical Systems

The objective of this research is to develop foundations for the newly emerging
generation of networked cyber-physical systems. The approach is based on a
distributed logic of cyber-physical systems together with distributed
cross-layer control and optimization strategies to enabled local actions to
maintain or improve the satisfaction of system goals. The framework will be
implemented first in simulation, then on one of SRI's robot platforms, and
demonstrated in the context of networked mobile robotic teams, a particularly
challenging application.

Networked cyber-physical systems present many intellectual challenges
not suitably addressed by existing computing paradigms. They must
achieve system-wide objectives through local, asynchronous actions,
using distributed control loops through the environment. A key
challenge is to develop a robust computational foundation that
supports a wide spectrum of system operation between autonomy and
cooperation to adapt to uncertainties, changes, failures, and resource
constraints, in particular to limitations of computational, energy,
and networking resources.

The results will have a variety of applications including distributed
surveillance, instrumented pervasive spaces, crisis response, medical
systems, green buildings, self-assembling structures, networked
space/satellite missions, and distributed critical infrastructure
monitoring and control. There is also potential for integration
into SRI's commercial robotic platform. Results will be publicly
available from a project web site, and tutorial material will be
developed for students and researchers. A multi-disciplinary research
seminar will be sponsored by SRI. The coPI is female with a strong
record of mentoring female students and young researchers, including
the project's female postdoc.